Presidential Young Investigator Award

Attention is focused on the field of biochemical engineering, with emphasis on the combination of experimental data and the development of kinetic models. This methodology will be applied to the study of monoclonal antibody production from hybridoma cells.